2006 Summer Conference on Topology and its Applications

Abstract

Award: DMS-0603294
Principal Investigator: Frederic Mynard and Francis Jordan

The 2006 Summer Conference on Topology and its Applications will
be held July 6-9, 2006, at Georgia Southern University in
Statesboro, GA. This conference is the twenty-first in a series
that began at City College of New York in 1984 and has been held
every year, except 1986, at locations in the United States and
abroad. There will be seven invited plenary speakers, all of
which are international leaders in their fields. Additionally,
two workshops will be conducted on "Physics and Domain Theory"
and "Selection principles in topology", each of which will meet
three times. These workshops will provide opportunities for
researchers and students to obtain an up-to-date overview of
specific and particularly active areas of research. Finally, six
special sessions are planned, each of which will be organized by
a group of three leading researchers in the corresponding field
and feature one semi-plenary speaker and more than twenty other
speakers. The special sessions are: Set-theory and Topology,
Topological Groups and Semi-groups, Asymmetric Topology, Topology
in Dynamical Systems, Fractals and Tilings, and Categorical
Topology. The areas of expertise of the plenary speakers reflect
the diversity of themes of the special sessions.

For more than twenty years, this series of conferences has been
one of the main forums for researchers in topology and related
fields. Topology is an area of pure mathematics that interacts
with virtually every other branch of mathematics in addition to
many other scientific fields. Applications of topology in other
areas of mathematics, physics, and computer science have long
been a focus of this series of conferences. The 2006 conference
will continue this tradition, as reflected by the variety of
workshops and special sessions proposed. This conference usually
brings together over 125 researchers and graduate students from
across the United States and more than 25 other countries. The
goals of this conference are to present participants with the
leading experts and latest research in topology and related
fields; foster collaborations and interactions between
researchers in topology and related fields; provide the
opportunity for graduate students and underrepresented groups to
be exposed to the latest research in topology-related fields and
to interact with leading researchers in these areas. The wide
range of special sessions and the types of workshops proposed
will provide the ideal environment for new interactions and
collaborations between researchers and students in different
fields related to topology.

For more information see the conference Web site,
http://www.cs.georgiasouthern.edu/faculty/mynard_f/STC06.htm.